Houston Alliance for Minority Participation Project

HOUSTON LOUIS STOKES ALLIANCE FOR MINORITY PARTICIPATION.PHASE II

The Houston-Louis Stokes Alliance for Minority Participation (H-LSAMP) consortium consisting of 6
universities, 2 community colleges, and a school district, will build upon its Phase I foundation to
implement a realistic, comprehensive plan to: a) recruit well-qualified minority students in STEM
disciplines; b) enhance retention rates by focusing on individual retention issues, and; c) ensure that
each student graduates with a clear career goal and the preparation to achieve it. The H-LSAMP will
maintain its management structure, its recruitment and selection process, and will continue to provide
financial support in the form of stipends to its H-LSAMP scholars. Scholars will earn their stipends by
performing activities associated with their training, such as working in research laboratories. The H-
LSAMP will maintain its successful Collaborative Learning Community model in which scholars are
required to attend rigorous excellence workshops associated with core courses such as calculus and
chemistry.

Additionally, the H-LSAMP will implement processes to educate the scholars about career opportunities
open to well-prepared graduates, and monitor and counsel them to optimize the likelihood of on-time
graduation. Strong emphasis will be placed on encouraging students to pursue graduate degrees and
preparing them for entry to graduate school. To this end, the H-LSAMP will plan and execute regularly
scheduled workshops and forums about STEM careers and graduate education, emphasizing the
leadership opportunities open to those with doctoral degrees in these fields. The H-LSAMP will
respond to the need for improved communication skills by providing formal written communications
skills training. Concurrently, a protocol for routine monitoring and documenting student progress that
includes periodic individual assessment and follow-up meetings with a staff member will be designed
and employed. The H-LSAMP will contribute to the growing body of knowledge about retention of
undergraduate minority STEM students by using accepted research methods to determine the relative
contributions of factors believed to be important to retention in this population. Last, because
information management is important to the success of programs such as the LSAMP, a state-of-the-art
information management software program developed specifically for the H-LSAMP will be made
available to other institutions.

The intellectual merit of this project lies primarily in the generation of important new knowledge about
factors that contribute to retention and success in the population of underrepresented minorities,
primarily Hispanics and African-Americans pursuing STEM baccalaureate degrees in Texas. One can
reasonably expect much of this knowledge to be generalizable to Hispanics and African-Americans in
other geographic areas of the U.S. Once the results of an innovative student-centered plan that combines
application of educational principles with a standardized counseling and monitoring protocol are known,
the educational community will have a model for assessing and responding to needs of individual
minority STEM students as they progress through their college careers. The commitment of the H-
LSAMP leaders, faculty, and staff is well-documented, and evidence of institutionalization of the
program includes the commitment of physical facilities and an institutional to NSF match of
approximately 1.5:1.

The broader impact of this project lies in its potential to greatly increase the numbers of well-focused,
minority graduates who graduate from our institutions inspired and prepared to pursue career goals. The
expectation is that a high proportion will aspire to attend graduate school, swelling the ranks of the next
generation of scientific leaders and educators. Finally, the H-LSAMP will have the potential to enhance
the success and impact of similar programs by making available proprietary software that facilitates the
data collection, retrieval, analysis, and reporting required for effective, efficient operation.